CAREER: Distributed Deduction with Contraction and Foundation of Strategy Analysis

This project has two parts, one in distributed deduction and one in the theory of theorem-proving strategies. Distributed deduction couples the traditional aim of making computation faster by parallelization, with the aim of investigating new forms of automated reasoning, that may arise from the combination of deductive computing and distributed computing. The research will consider the coarse-grain parallelization of contraction- based strategies, that are among the most successful strategies available, especially on equational problems. The objective is to design new techniques to subdivide a theorem-proving problem among concurrent deductive processes, in such a way that each of them has less work than a sequential process, and a proof may be found faster. This part of the work will consist in the definition and implementation of distributed strategies with these features. Theorem-proving strategies are evaluated usually by testing their implementations. The long-term goal of the theoretical part of this research is to make possible some complexity analysis of theorem-proving strategies prior to implementation, so that useful features may be recognized sooner. Recent work by the proponent shows that progress in this direction is feasible. This project will develop a methodology of analysis, that covers both forward reasoning and backward reasoning, sequential and parallel strategies. As part of the project the methodology will be applied to analyze selected features of strategies, such as contraction, lemmaizing/caching and forms of parallel search. The two parts of the project are deeply connected, because the methodology for strategy analysis is based on a model of the search space and search process, which is used also as a fundamental tool of analysis to achieve the objectives in distributed deduction. The educational component of this project comprises two objectives in course development. The first one is the evolution of an undergraduate cour se in programming language concepts into a course where the concepts are learnt in functional and logic programming. The purpose is to offer to the students some exposure to paradigms that are underrepresented in the curriculum. This is important, since long-lasting programming maturity requires the flexibility fostered by the practice of multiple paradigms. The second one is the development of a graduate course in artificial intelligence. It will be a course in logical methods for artificial intelligence, with an emphasis on fully automated deduction. The students will acquire a solid understanding of some of the most important concepts in the logical foundations of computer science, together with the preparation for seminars or research projects in deduction. Both lectures and assignments will emphasize the practical consequences of the theory, and students will conduct experiments with state-of-the-art theorem provers.